The Haystack Observatory as a Research Experience for Undergraduates (REU) Site for Astronomy and Atmospheric Science, Using Radio Techniques

9322014 Salah The Massachusetts Institute of Technology will host eight undergraduate students annually at its Haystack Observatory to provide research experiences for undergraduates. The Haystack Observatory is a multi-disciplinary research center dedicated to radio astronomical research using its 37-m diameter telescope and to studies of the earth's upper atmosphere using its 46-m and 67-m high power radars. The students will be involved in the acquisition of data using the instrumentation, analysis and interpretation of the measurements, as well as development of hardware and software to improve capabilities of the facility. Astronomical studies involve the characterization of stellar and quasar radio emission, starburst galaxies, and masters in our galaxy. Atmospheric studies will emphasize the effects of geomagnetic storms on the structure and dynamics of the earth's atmosphere and on spectral studies of periodic variations observed in the upper atmosphere. Technical projects include the digital design of signal processing systems, tests of advanced recording heads, and development of real-time control software. The students will work closely with a staff mentor throughout the summer, and will prepare a report and presentation on their projects. The presentations will be given at national conferences, and opportunities will be provided to continue some of the projects during the academic year. The students will be exposed to all aspects of the research facility through seminars and demonstrations at the various unique facilities, and will obtain a thorough practical experience of scientific research at a facility dedicated to research. The Haystack Observatory has an excellent record of providing research experiences to undergraduates.